Molecular Basis and Evolution of the Natural Homeotic Phenotype of Lacandonia Schismatica: The Only Flowering Plant With Inverted Reproductive Whorls

0000428
Ambrose

The International Research Fellow Awards Program enables U.S.
scientists and engineers to conduct three to twenty-four months of
research abroad. The program's awards provide opportunities for
joint research, and the use of unique or complementary facilities,
expertise and experimental conditions abroad.

This award will provide Dr. Barbara A. Ambrose with support for
twenty-four months work with Dr. Elena Alvarez-Buylla Roces at
UNAM's Instituto de Ecologia in Mexico City, Mexico.

The objective of this project is to examine the genetic basis of
an unusual floral pattern (carpels peripheral, stamens central) in
Lacandonia, and compare it with DNA-based phylogeny. The origin
of flowers is an important puzzle in the evolution of plants. The
project concerns a fundamental aspect of plant development using a
model system that is only available in Mexico. This project will
make an important contribution to our understanding of flowering
plant evolution.

Dr. Alvarez-Buylla's lab is fully equipped to develop all state-
of-the-art techniques in molecular biology and biochemistry of
plants. The host has extensive experience in phylogenetic
analyses which will complement the PI's experience in molecular
biology techniques.

***